Geometric Function Theory in Several Complex Variables

There are two main research directions in this project.
The first one is the continuation of the work on a
general theory of boundary values, in the sense of
analytic functionals or hyperfunctions. In its present
state this theory has clarified several points in the
study of boundary values of functions, in particular
viz the intrinsic character of the definitions. Points
which they have clarified in the global setting need
further study in the local version. A theory in the
non real analytic setting is still to be done. The
second direction is at the confluent of pluri-potential
theory and complex geometry. A still remote goal is
the possible extension of Poletsky's theory of disks
to the case of almost complex manifolds, whose role
in Mathematics is rapidly growing. It also leads
to the study of approximate solutions to the d-bar
operator.

The primary field of this proposal is Several
Complex Variables. This field is rich due to its
connections to many fields in Mathematics.
There is in particular a remarkable interplay between
Several Complex Variables and the theory of
Partial Differential Equations, which itself is
the most basic tool in the study of many processes
in Physics and Engineering. The first direction discussed
above fits in that setting. In applications
quantitative studies have often to be replaced
by qualitative studies, either because the
quantitative study is too difficult or because the
qualitative study is in fact more illuminating. This
is where the field of Topology is essential.
Several important connections exist between Several
Complex Variables and Topology. The second direction
discussed above fits in that setting. Deformation theory
is a major theme, in which the study of almost complex
structures has already played a crucial role.